Laboratory of Mathematical Modeling and CAI, Phase IV

Microcomputer-based lab activities are being integrated into the undergraduate mathematics curriculum. The plan is driven by a philosophy drawn from the empirical sciences: deep laboratory exercises simulate the research process, and thereby add a critical dimension to the growth of a scientist. It is expected that the students emerge with a much broader qualitative understanding of the underlying mathematics.The laboratory is equipped with 20 Macintosh IIsi computers running Mathematica, MathCAD, Minitab, and SAS/JMP; the lab is augmented with two Macintosh projection setups and a 2-unit preparation/consulting room. A previously piloted lecture/lab calculus course is being implemented in all sections of the general calculus sequence, there are improved exercises and demonstrations in the computational modeling and statistics courses and a lab format is being introduced in differential equations and linear algebra.